Workshop: Challenges in modeling the spatial and temporal dimensions of the ecology of infectious diseases; September 19-22, 2012; Columbus, OH

Understanding disease transmission dynamics requires grappling with the inherently spatial and temporal nature of the process. A workshop designed to engage researchers from the GIScience (geographic information science) and geography communities with disease ecology research will be held in conjunction with the GIScience 2012 conference on 18 September 2012. The outcome of the workshop will be greater interactions between these research communities. Infectious diseases affect human health, food security, and ecosystem structure. This workshop will improve the quality of research in this area.